Research in Dynamical Systems

The proposal outlines a program of exploring different aspects of low
dimensional dynamics:
combinatorial and geometric issues of holomorphic dynamics,
its interplay with one-dimensional real dynamics
(particularly in the rigidity and renormalization theories),
interaction with three dimensional hyperbolic geometry and the theory of
foliations, analytic and geometric aspects of two dimensional complex and
real dynamics.

The dynamical systems theory studies the evolution of various systems
arising in physics, biology, engineering etc., as well as simplified
mathematical models for those systems. It has been realized in the past 25
years that even one- or two- dimensional models can exhibit rich and
important phenomena. It has been also realized that the methods of complex
analysis provide powerful tools for dealing with these systems. The
proposal intends to explore further this branch of dynamics.